International Conference on Separation Technology to be heldin Schloss, Elmau, Klais, West Germany, April 26-May 1, 1987

Support is provided for an International Conference on Separation Technology whose objectives will be to define the directions for future separation research and to promote international dialogue and collaboration in various areas of separation technology. The conference covers almost every major area of separation technology, and all the invited speakers and session chairman are noted authorities in their respective areas of specialties. Consequently, the proceedings of the conference will be a valuable aid in program planning and assessment in NSF's Programs on Separation and Purification Processes and Thermodynamics and Transport Phenomena.